Cellular Transport Mechanisms in Elasmobranch Kidney Tubules

Sharks and other elasmobranchs accumulate high concentrations of urea in the tissues and blood as osmotic buffers to prevent water loss in sea water. The long-term objective of these studies is the identification of mechanisms responsible for the reabsorption of urea in the kidney of elasmobranch fish. A tentative model has been developed to account for the reabsorption of urea against a large chemical concentration gradient. Further characterization of this system will continue. It is anticipated that these studies will lead to a better understanding of the physiological mechanisms of urea transport and conservation in elasmobranch fish.